1987 High School Science Teaching Workshop and SACNAS Conference

The goal of the project is to help teachers with the planning of programs designed to increase the participation of Chicanos and Native Americans in the sciences. The workshop and conference will consist of science symposia on timely scientific themes, workshops on the improvement of science teaching, and interactions among SACNAS scientists, teachers and students.